Interactions between Algebra, Algebraic Geometry and Topology

In this proposal, the investigator and collaborators study problems in
algebra, algebraic geometry and topology. Three of these projects
study families of noncommutative algebras arising naturally in various
branches of algebra. The first project is to study finite dimensional
irreducible representations of Clifford algebras of forms of higher
degree. The approach in studying these algebras is to work on a
reformulation of the questions in terms of moduli spaces of certain
reflexive sheaves on hypersurfaces. Another goal is to investigate
arithmetic applications of these results. The second project (joint
with D. Chan) is continuation of previous work on sheaves of maximal
orders on complex, projective, algebraic surfaces. The main goal is to
classify various classes of such sheaves of maximal orders. This work
follows recently developed ideas in noncommutative algebraic
geometry. The third project (joint with A. Ram) is to investigate
whether the Springer correspondence can be set up for rational
Cherednik algebras along the lines of single graded Hecke
algebras. Another goal is to investigate whether these algebras can be
related to N. Wallach's approach to the Springer correspondence. The
last project (joint with M. Banagl) is to investigate whether there
exist self-dual sheaves compatible with the intersection chain sheaves
on reductive Borel-Serre compactifications of locally symmetric spaces
associated to semisimple algebraic groups defined over rational
numbers.

In the last few decades, the interaction between various branches of
mathematics and theoretical physics has proved to be especially
enriching for all the fields. One important thread in these
connections has been algebraic geometry, a very old subject that dates
back at least to ancient Greece. Algebraic geometry is the area of
mathematics that studies solutions to multi-variable polynomial
equations as geometric objects. It has found applications not only in
mathematics, but also in computer science, coding theory, robotics and
string theory in physics to name a few areas impacted by it. The first
two projects of this proposal use tools from this subject to study
"algebras" that are of interest to a wide range of mathematicians and
physicists. It is useful to describe the whole family of such classes
of algebras as a geometric object, and a goal of this project is to
obtain such descriptions. The third aspect of this research is part
of a subject called representation theory. The main objects of study
here are "representations", processes which encode information about
symmetry in nature. The last part of this proposal stands at the
intersection of three subjects: number theory (where number systems
are studied), representation theory, and topology. In topology spaces
are studied to determine which properties do not change under elastic
deformations such as twisting and stretching. The spaces to be
studied in this research encode number theoretic information. The goal
is to investigate whether there are invariants of these spaces which
themselves satisfy some symmetry.